SCI: CyberInfrastructure for Science & Engineering

"This agreement with the University of Illinois - Urbana/Champaign recognizes the important role the Awardee will play in building, delivering and supporting cyberinfrastructure to meet the needs of the science and engineering research and education community."